Presidential Young Investigators Award - Studies of Metabolism in Mammalian Cell and Tissue Cultures

The overall goal of this research award will be to further develop an interdisciplinary program in mammalian cell engineering. Specific topic areas include: - Mass transfer and reaction in membrane bioreactors. - The effects of cell density and immobilization on cellular metabolism. - Positive and negative isolation of cell subpopulations using magnetic immunobeads. - Culture of tissues.